Using the National Engineering Education Delivery System as the Foundation for Building a Test-Bed Digital Library for Science, Mathematics, Engineering and Technology Education

Two key National Science Foundation reports, Systemic Engineering Education Reform: An Action Agenda and Shaping the Future: New Expectations for Undergraduate Education in Science, Mathematics, Engineering, and Technology, urge the formation of a national resource to provide access to quality courseware and to disseminate successful educational practices. Since the early 1990s, NEEDS the National Engineering Education Delivery System has provided these services for the engineering education community. Building on this base, this project will. Develop a test-bed digital library for science, mathematics, engineering, and technology education (SMETE). The library will provide courseware, cataloging, indexing, searching, and downloading to the science and mathematics communities. Initiate the development of a SMETE digital library community. Evaluate the test-bed library. Develop recommendations for the continued development of a SMETE digital library based on a needs assessment and test-bed evaluation.